Acquisition of a Fluorescence Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Long Island University will acquire a fluorescence spectrometer. This equipment will enhance research in a number of areas, including molecular recognition studies and low temperature deposition of thin films to produce electroluminescent displays.

The fluorescence spectrometer counts photons of light in the UV and visible regions. When a sample of material is illuminated by UV light, the visible light generated as a result of the fluorescence process can be monitored by the extremely sensitive fluorescence spectrometer. Subsequent analysis provides precise information on the electronic structure of the fluorescing material.